Collaborative Proposal: Postseismic deformation of the Izmit-Duzce, Turkey earthquake sequence: implications for the mechanics of the earthquake cycle and rheology of the continent

The Izmit-Duzce earthquake sequence (M=7.4, 17/08/1999; M=7.2, 12/11/1999) offers a unique
opportunity to answer long-standing, fundamental questions about the nature of the earthquake cycle
(mechanics of strain accumulation and release), and the rheology of the crust and upper mantle. The
geodetic data set we are developing for these earthquakes includes both a well-determined preearthquake
velocity field around the earthquake fault, and a network of GPS stations within the coseismic
deformation zone (near and far field) that captured the initial, rapid, and ongoing longer-term
postseismic deformation. This is one of the most complete geodetic records of deformation for any major
continental earthquake anywhere in the world.
Interpretation of the geodetic record is facilitated by detailed seismic observations before, during,
and following the earthquake sequence, field mapping of fault offsets, satellite image (SPOT) and
geodetic (InSAR) studies, and geologic studies of the 20th Century sequence of earthquakes that
propagated along the North Anatolian Fault (NAF) from E to W fracturing almost the full 1200 km length
of the fault (excluding the Marmara segment). Furthermore, the NAF has a long and well recorded
historical seismic record extending back almost 2000 years that, along with the well-constrained
paleoseismic record and recent geodetic observations, provides an extensive data set for testing
earthquake models of continental faulting.
In collaboration with our Turkish partners, we propose to use an extensive catalogue of available
GPS and InSAR data to constrain continuing deformation following the Izmit-Duzce earthquake
sequence, and to extend our modeling effort to produce a quantitative description of the dynamics of the
NAF system seismic cycle. The proposed research builds on our prior efforts (Ergintav et al., 2009; Hearn
et al., 2009) that included analysis of 6.5 years of postseismic GPS observations (both continuous [CGPS]
and survey [SGPS]) to characterize the temporal and spatial behavior of initial, and early postseismic
motions, and dynamic modeling for the initial 2.5-year period following the earthquake sequence. In
addition, an important new constraint on postseismic deformation is provided by recent InSAR analysis
(Cakir et al., 2012) that requires a re-evaluation of the role of afterslip along a substantial segment of the
coseismic fault late in the postseismic period, potentially with major implications for seismic hazards.
The proposed research will provide an important set of observations on the nature
of the earthquake cycle for a major continental strike-slip fault with direct implications for earthquake
mechanics, estimating earthquake repeat times, crust and upper mantle rheology as a function of the state
of stress, and interaction between earthquake processes and regional tectonics. This case study provides information on the mechanics of continental strike-slip faults in general, including the San Andreas Fault, earthquake and tsunami hazards in the greater Istanbul area, and opportunities for international scientific collaboration.